Glycosylation of Recombinant Proteins Research Planning Grant

9711130 Harcum This Research Planning Grant proposal addresses what appears to be a commercially significant and scientifically under- investigated area, the effect of bioreactor conditions on the glycosylation patterns of protein. The research program would study mammalian cells grown in continuous culture (chemosts) and determine the effect of variables such as agitation, pH, temperature, growth rates, etc. Electrophoretic and chromatographic separations coupled with mass spec and NMR analyses will be used in structural determinations. ***